Engineering Research Equipment: High Frequency Dieletric Spectrometer

9310603 Saville Under the aegis of this equipment grant proposal, funds are sought to purchase a set of devices (a high frequency impedance analyzer, computer, and auxiliary equipment - hereafter to be called the High Frequency Dielectric Spectrometer) to characterize colloidal dispersions, emulsions and thin films via measurements of the (complex) impedance of dielectric constant. The instrument will be used in several research projects including: (i) Dielectric Spectroscopy of Colloidal Dispersions - Research on the electrical nature of the particle-fluid interface and the properties of adsorbed polymer layers using electrokinetic measurements, (ii) Microemulsions - Research on the relationships between structures and bulk properties. (iii) Dielectric Properties of Thin Film and Emulsions - Characterization of thinning processes in single films and emulsions. ***